III: Robust and Responsible Reasoning for Privacy-Preserving Image Geolocation

Recent advances in artificial intelligence (AI) have made it possible for computers to determine where a photo was taken with unprecedented accuracy. This capability has beneficial applications in disaster response, image verification, accessibility technologies, and other areas. At the same time, widespread availability of these capabilities has the potential to reveal sensitive information about where people live, work, travel, or spend time, often in ways that users do not anticipate. Current AI systems cannot explain how they reach accurate conclusions about the location of an image, cannot distinguish between appropriate and inappropriate disclosures, and provide users with few tools for protecting their privacy. This project develops artificial intelligence systems that can reason about geographic information more transparently and help users control how location information is shared. This advances the national interests by strengthening the foundations of trustworthy AI and training the next generation of researchers in advanced AI technologies.

The project seeks to transform image geolocation from a black-box capability into a reasoning-centered and privacy-aware paradigm. Advanced geolocation reasoning agents will be developed that make use of the same tools as human geo-guessers. The project will train vision-language models (VLMs) using reasoning traces provided by expert human geo-guessers including the reigning GeoGuessr world champion. Models will be tuned to disclose location information in ways that align with human expectations about location sharing, using reinforcement learning with human feedback and contextual integrity theory to determine the appropriate level of location granularity for a given context. Finally, the project will develop image obfuscation tools that make minimal edits to an image to obscure location-revealing evidence while managing the privacy-utility tradeoff. The project will also develop an evaluation methodology for safe image geolocation and sharing using strong attacker models with realistic threat models, providing empirical privacy guarantees that can evolve alongside future advances in geolocation capabilities.